Image Processing/Analysis System and Remote Sensing Center for Undergraduate Students

The University of Colorado, Colorado Springs, will obtain current production quality image analysis equipment to be used in the undergraduate curriculum for geography and environmental studies majors, geology/geography distributed study majors, and students in other related disciplines. The present curriculum will be redesigned to contain an introduction to image processing at the level of Introduction to Remote Sensing. Traditional air photo interpretation and photogrammetry will still be introduced in this course. The proposed new equipment will be used for the entire Advanced Remote Sensing course. Students will get in-depth instruction and extensive hands-on experience with the new system. The class will be designed so that at the end of the course students on their own will be able to function well with all of the system capabilities to solve real remote sensing and image analysis problems. A new seminar, Practicum in Image Processing, will be added to the curriculum. This course will be the organizational mechanism for establishing the Southern Colorado Remote Sensing Center in which students will elicit real world remote sensing problems from local and regional government agencies (e.g. planning departments), private enterprise firms on a cost paid basis, and university projects. The students will then design, produce, and present their work to the data requester.